A Synthesis of Ocean Drilling Program Geothermal Data: Collaborative Research

9633529 Langseth This collaborative project between researchers at Lamont-Doherty Earth Observatory of Columbia University in the City of New York and the University of Illinois at Chicago will prepare and produce a synthesis on CD-ROM of geothermal data collected over ten years of the Ocean Drilling Program. The investigators will evaluate the quality of all measurements of downhole temperature and thermal conductivity of the sediments and rock. They will prepare a report on the quality of the data, a discussion to place them in global context, and a bibliography. The completed CD-ROM will be provided to the Ocean Drilling Program and the National Geophysical Data Center for distribution to interested researchers, as well as to the International Heat Flow Commission for inclusion in their worldwide database. ***